Spectroscopy of Cold Atoms

Improved understanding of the interaction of radiation with cold atomic vapors and BEC's will be sought, using nonlinear spectroscopy (both continuous wave and pulsed). In cw spectroscopy collisional effects in cold vapors and mean field shifts and scattering in BECs will be studied as a function of the frequency difference between two fields. The spectrum of recoil-induced resonances will be calculated. For pulsed field interactions both the impulse and Bragg scattering limits will be studied.